Determining Bond Quality in Concrete Structures - A New Application of the Impact-Echo Method

This project is a nondestructive testing method based on the use of transient stress waves, to determine the quality of bond at interfaces in layered structures, such as in bridge decks with overlays, or at an interface between repair concrete and the parent concrete in the structure being repaired. Research includes numerical, laboratory, and field studies to determine which factors, such as porosity and tensile strength, at an interface have the most significant effects on the reflection and transmission of stress waves incident upon the interface. Three- dimensional, dynamic, finite element models will be used to simulate the impact-echo response of layered structures containing various interface conditions. These numerical studies will be complemented by laboratory studies in which specimens with different interface conditions will be constructed and tested using the impact-echo method. The bond strength at the interfaces in the specimens will be determined using commercially available bond test equipment to determine whether any information can be gained through correlating bond strength at an interface with impact- echo results. The numerical and laboratory studies will establish the basis for using the impact-echo technique for determining bond quality in existing structures.